Technician Support: Computer Facility for Research in Seismology

This award will provide partial funding for a systems manager to support the computer system of the geophysics research group in the Department of Geological & Planetary Sciences at Harvard University. The computer facility presently serves 15-20 faculty, postdoctoral research associates, graduate and undergraduate students working in computer-intensive areas of research such as seismic tomography, earthquake seismology, geomagnetics, and other studies of the Earth's deep interior.